Macintosh Lab on Wheels

Computers are being used regularly as a tool in the classroom for complex graphical display and computation of realistic examples. Students are seeing the use of computers as a tool which is available for use as appropriate during the normal problem solving process.